Presidential Young Investigators Award

This Presidential Young Investigator Award concentrates on research on wide bandgap semiconductor materials, such as diamond, silicon carbide, and boron nitride. THe materials are being synthesized using microwave plasma enhanced chemical vapor deposition, oxyacetylene flame deposition, and heated filament deposition. The emphasis in the synthesis studies is film surface morphology and film adhesion to the substrate. Adhesion studies involve surface characterization and interface modification by ion beam damage and in-situ cleaning. Characterization techniques include Auger spectroscopy, x-ray photoelectron spectroscopy, ultraviolet photoemission and inverse photoemission spectroscopy, and electron diffraction.